1992 Theoretical Advanced Study Institute in Elementary Particle Physics; Boulder, Colorado; May 31-June 26, 1992

The 1992 Theoretical Advanced Study Institute (TASI-92) will be held during June 1992 at the University of Colorado. This Study Institute will provide a series of lectures and seminars, aimed at advanced graduate students, on current topics in theoretical elementary particle physics and related experimental subjects. These topics will include the string theory of the basic forces, quantum field theory, the "standard model" of elementary particle physics, black holes, and astrophysical structure formation. These topics are very important and timely, and TASI-92 will provide its students an invaluable opportunity to learn about advanced subjects and recent developments from experts.